Acquisition of an Infrared Microscope

9416692 Dixon Funds are provided to purchase a microscope. The main application will be to determine H2O and CO2 contents in glass inclusions in phenocrysts and glasses in crystal-rich samples from MORs, oceanic islands, and subduction related volcanoes. ***